Purchase of a Computerized Data Acquisition System for an Undergraduate Physiology Laboratory

The goal of this project is to improve the scientific education of Hope College's Biology students by providing the modern scientific instrumentation needed to assure the currency and quality of their laboratory experiences. In physiology and other biological sciences, computerized data acquisition and analysis systems are being used more and more frequently in research and teaching. Purchase of a computerized data aquisition system allows students in Introductory Biology courses, Human and Vertebrate Physiology courses and the Independent Research course to have hands-on experience with this modern instrumentation and to gain an appreciation of the power, speed and overall usefulness of computerized data acquisition and analysis systems. The instrumentation makes possible new experiments in the teaching laboratories and improves the quantity and quality of the data gathered both in regular courses and in independent research.